Flocculation and Dewatering of Biologically Active Suspensions of Solids Used in Wastewater Treatment

9625793 Vesilind This is an award to support research, the objective of which is to obtain a better understanding than now exists of factors that affect thickening and dewatering of suspensions of biologically active solids. The investigator's initial objective is to synthesize a suspension using polystyrene latex particles to simulate bacteria, alginate to simulate microbial extracellular polymers, calcium as source of potential bridging cations, and as yet unknown component to simulate flocculation. Research on biologically active suspensions of solids has been hampered by their variability. Results of this research aimed at developing a synthetic equivalent of these suspension has the potential of significantly improving our understanding of their behavior when subjected to sedimentation and dewatering. This improved understanding in turn has the potential for improving the engineering design of new bioreactors processing systems for treatment of domestic and industrial wastewaters and in operation of existing systems.